Network Research and Test-bed Workshop; June-2002; Washington, DC area

This workshop will bring together key experts from academia and industry to explore new ideas and research directions for network research and infrastructure in wired and wireless networks. The new ideas and research directions proposed are at least a generation beyond what is currently pursued in the research arena today.